Using Models to Develop "Chemical Intuition"

Organic chemistry and biochemistry students will construct, manipulate, and analyze computer generated visual models of chemical systems on a frequent and routine basis. These exercises will make use of computer-based molecular modeling tools and compatible chemistry modeling software. The workstations will enable faculty to lead modeling sessions for large groups of students, and will ensure easy access for students engaged in independent modeling exercises. This project is unique because it does not view computational chemistry as an end in itself. Rather, state-of-the-art computational techniques will be used to develop student "chemical intuition", and to provide a means for employing modeling, with an emphasis on structure visualization and analysis, as a learning activity.